Heterogeneous Reaction Rate Studies of Cloud and Fog Droplets

Heterogeneous reaction pathways involving water droplets in clouds and fogs are important conduits for chemical transformation of important atmospheric trace gases. One of the basic parameters which determines the transfer rate of trace gases into atmospheric droplets is the mass accommodation or "sticking" coefficient for trace gas molecules on aqueous surfaces. In this research project the study of atmospherically important heterogeneous process including measurement of the mass accommodation coefficients and their temperature dependence for a variety of species will be undertaken. Additionally, studies of the effect on sulfur dioxide uptake of ion chemistry and co- deposition of two gases such as sulfur dioxide and ammonia, the chemistry of surface species, and the effect of electric charge and surfactant coating on gas-liquid interaction are planned. This research is motivated by the importance of heterogeneous reaction pathways involving water droplets in clouds and fogs as conduits for chemical transformation of atmospheric trace gases. For example, one of the basic parameters which determines the transfer rate of trace gases into atmospheric droplets is the mass accommodation or "sticking" coefficient for trace gas molecules on aqueous surfaces.